INTEGRATED SENSING: Ontology Based Radios

Wireless communication is essential for coordination of emergency
response efforts. However, the various kinds of unit (fire, police,
FBI and unattended sensors) do not necessarily have access to common
radio architectures. To achieve high levels of flexibility and
scalability for wireless communication, the processing of the wireless
waveforms must be performed in software: i.e., "software
radio". Migrating algorithms from hardware to software can increase
the level of functionality but only if the communication protocols are
established at run time. We propose an approach to establishing
communication by explicitly maintaining self-awareness and
communication of knowledge about the operation of the communication
nodes. The self-awareness and communication of knowledge is based on
the maintenance of an explicit, declarative knowledge base or
"ontology" of communication. Hence, we refer to the concept as
"Ontology Based Radio" (OBR). An ontology captures the basic
terminology (concepts) of the domain of interest and the relationships
among the concepts. Ontologies can be expressed in the DARPA Agent
Markup Language (DAML), and processed either off-line using a theorem
prover or in real time using an expert system engine. The main idea
of OBR is that the communication nodes ``understand'' the contents of
information to be transferred, their own capabilities and capabilities
of the destination units. The goal of the proposed project is to
develop a proof of concept that demonstrates optimized dynamic
interoperability between different kinds of communication node,
especially unattended sensors as well as radios used by emergency
response teams.